VPW: Yup'ik Conception of Wellness

This project describes contemporary Yup'ik conceptions of wellness, i.e., beliefs and practices associated with health promotion and illness prevention. Research is being conducted over a twelve month period in Bethel, Alaska which is the hub of the Yukon- Kuskokwim Delta, the most populous region of Yup'ik speakers in the state. The hospital there serves as the medical center for 56 villages. The project entails collaboration with the Alaska Native regional health entity operating the hospital to prioritize specific issues of concern within the topic of Yup'ik conceptions of wellness. The specific issues identified are the focus of ethnographic research at the hospital. By most epidemiologic, economic, demographic, and social health measures, this region is the most disadvantaged in the state. Acute infectious disease contributes substantial morbidity. Additionally, many health problems are due to chronic disease, injury, and other health problems that have a behavioral factor as a contributing cause, the prevention which entails a behavior change component. The illness profile describing the disease and psychosocial dysfunction of the people of the region is well defined. A wellness profile will be developed through compilation of quantitative data on diachronic indices of risk factors and health behavior change, and qualitative, ethnograpic data describing cognitive categories related to preventive health domains, explanatory models of illness episodes and their relationship to wellness, and health behavior "success stories". By focusing on contemporary beliefs, the research will advance the knowledge of: Yup'ik conceptual categories of etiology and prevention; beliefs of a much wider age group than has previously been described; and beliefs related to health issues previously unexamined. Paradoxically, this work that focuses on the contemporary and on fostering behavior change, could advance the Yup'ik cultural revitalization agenda by reinforcing the traditional Yup'ik value of illness prevention and belief in the role of human agency in the health of the individual and the community. Interactive activities include teaching an undergraduate course, instruction and supervision of students as research assistants, teaching a graduate course for health care providers, giving guest lectures including instruction for Community Health Aides at the Alaska Statewide Community Health Aide Conference in Anchorage in April 1997.